Conference: Advancing Community Collaborations in Open Research and Data Systems (ACCORDS)

ACCORDS (Advancing Community Collaborations in Open Research and Data Systems) is a three-day, cross-cutting improvements-focused meeting that will help increase knowledge about processes and approaches that lower barriers to accessing, curating, integrating, linking, managing, sharing, and storing data across many disciplinary domains. This first meeting will serve as a hub for building a cross-cutting, network-wide open science and data community.

The ACCORDS meeting will be held April 14-16, 2027 at Howard University, and will engage attendees in a series of pathways to help map and engage the interconnected components of the broader open source and open science ecosystems. The ACCORDS Conference will be informed by external partners and research to understand differences in open science across disciplines, which will allow members to frame overlaps and distinctions at the departmental and program levels. Through needs assessments and targeted training, ACCORDS will identify critical barriers and opportunities for adopting findable, accessible, interoperable, and reusable open science (FAIROS) principles and practices.